Mathematical Sciences: "Holomorphic Convexity of Complex Manifolds"

The research covers aspects of holomorphically convex domains in several complex variables and complex geometry. Particular questions relate to the topology and geometry of classes of covering spaces of complex manifolds and their related function theory. The topics covered in the proposal cover several important aspects of the analysis of several complex variables and related geometry. Besides their relevance to other areas of mathematics, the techniques have by tradition had applications to mathematical physics and several branches of the engineering sciences such as elasticity theory and aerodynamics. ***